Remediation of Organic Pollution Via Catalyzed Photooxidation of Pollutants in Air and on Surfaces

9362052 Pishko The objective of this project is to determine whether the use of titanium dioxide to coat ceramic and metal substrates is an effective way to use its photocatalytic properties for oxidation of air pollutants produced by combustion of hydrocarbons. Alternative methods for applying titanium to surfaces are being investigated to determine the appropriate method of application, half-life of the coating, and photoactivity associated with each coating method. This is a Phase I award based on a proposal submitted in response to NSF 93-18, Small Business Innovation Research (SBIR) Program Solicitation. Results are expected to provide the basis for use of this technology in reducing pollution of air in air circulating systems of homes, commercial buildings and airplanes.